Long Period Comets and the Collisional History of the Solar System

Comets, as remnants of the early solar system, offer key insights into planetary formation, dynamics, and small body evolution. Divided into long-period (LPCs) and short period comets (SPCs), they serve as records of the protoplanetary disk. LPCs, likely formed closer to the Sun, were scattered to the distant Oort cloud by giant planets. Their distant orbits minimize evolution, preserving original disk material more pristinely than other bodies. However, the distribution of sizes versus number (frequency) at a given size of LPCs remains poorly understood due to difficulties in observing their nuclei. A researcher at the University of Hawaii’s Institute for Astronomy will measure the size-frequency distribution (SFD) of LPCs that will help answer key questions about solar system formation. The program will include using heliocentric light curves and sublimation models to estimate nucleus sizes of LPCs. New data for 60 comets will be gathered and combined with existing data for 80 additional comets, creating a robust data set for the study. Determining the SFD of LPCs will contribute to the planetary defense initiative, because it is a critical part of assessing the risk of them impacting Earth. The researcher and graduate student will also contribute to advancing student success and workforce development across Hawaii by participating in STEM education programs.

Determining the SFD of long-period comets can reveal crucial insights into early solar system conditions, including collisional evolution and giant planet migration. This project overcomes key observational challenges by combining heliocentric light curves with sublimation models to estimate LPC nucleus sizes. The resulting framework will enable the use of Vera C. Rubin Observatory’s Legacy Survey of Space and Time (LSST) data—which may detect up to 10,000 active comets over a decade—to identify structural features in the LPC SFD, such as breaks or slope changes, that can distinguish between competing formation and scattering models. A statistically robust LPC SFD would test existing theories and provide a foundational contribution to planetary science, particularly if break points are found within the 1–25 km range, revealing how LPCs formed and evolved in the Oort Cloud.